Collaborative Research: Do Ocean Wave Impacts Pose a Hazard to the Stability of West Antarctic Ice Shelves?

Understanding and being able to more reliably forecast ice mass loss from Antarctica is a critical research priority for Antarctic Science. Massive ice shelves buttress marine terminating glaciers, slowing the rate that land ice reaches the sea and, in turn, restraining the rate of sea level rise. To date, most work has focused on the destabilizing impacts of warmer air and water temperatures, resulting in melting that thins and weakens ice shelves. However, recent findings indicate that sea ice does not protect ice shelves from wave impacts as much as previously thought, which has raised the possibility that tsunamis and other ocean waves could affect shelf stability. This project will assess the potential for increased shelf fracturing from the impact of tsunamis and from heightened wave activity due to climate-driven changes in storm patterns and reduced sea-ice extent by developing models to investigate how wave impacts damage ice shelves. The modeling effort will allow for regional comparisons between large and small ice shelves, and provide an evaluation of the impacts of changing climate and storm patterns on ice shelves, ice sheets, glaciers, and, ultimately, sea level rise. This project will train graduate students in mathematical modeling and interdisciplinary approaches to Earth and ocean sciences.

This project takes a four-pronged approach to estimating the impact of vibrations on ice shelves at the grounding zone due to tsunamis, very long period, infragravity, and storm-driven waves. First, the team will use high-resolution tsunami modeling to investigate the response of ice shelves along the West Antarctic coast to waves originating in different regions of the Pacific Ocean. Second, it will compare the response to wave impacts on grounding zones of narrow and wide ice shelves. Third, it will assess the exposure risk due to storm forcing through a reanalysis of weather and wave model data; and, finally, the team will model the propagation of ocean-wave-induced vibrations in the ice from the shelf front to and across the grounding zone. In combination, this project aims to identify locations along the Antarctic coast that are subject to enhanced, bathymetrically-focused, long-period ocean-wave impacts. Linkages between wave impacts and climate arise from potential changes in sea-ice extent in front of shelves, and changes in the magnitude, frequency, and tracks of storms. Understanding the effects of ocean waves and climate on ice-shelf integrity is critical to anticipate their contribution to the amplitude and timing of sea-level rise. Wave-driven reductions in ice-shelf stability may enhance shelf fragmentation and iceberg calving, reducing ice shelf buttressing and eventually accelerating sea-level rise.